POWRE: Measurement of the Electric and Magnetic Form Factors of the Neutron

This POWRE award provides funding that would allow the PI to expand on the initiation of a new research activity at Thomas Jefferson Nuclear Accelerator Facility (TJNF). This proposal will allow the PI to participate in TJNAF experiment 093-038, 'The electric and Magnetic Form Factors of the Neutron' to further advance her research career. This experiment addresses a fundamental question regarding the nature of the charge structure of the neutron: What is the spatial distribution of the constituent quark within the neutron? The question is addressed in this experiment by scattering longitudinally polarized electrons quasi-elastically from a neutron in deuterium. The award is funded by the NSF POWRE program, the Office of Multidisciplinary Activities in the MPS Directorate, and the Physics Division.